SGER: A Prototype Load Sensor Incorporating Finite-Length Elastic Measurement Paths

9415328 Washabaugh This SGER type award is to construct a protype transducer employing finite length optic measurement paths. The performance of this transducer will be evaluated for its sensitivity in torsion and its cross-sensitivity to other types of loading. Errors related to manufacturing and locating the transducer will also be examined. ***